NIRT: Ink Jetting of Nanostructured Matrices for Controlled Gene Delivery

ABSTRACT
CTS-0210238
P. Kumta, L. Walker, L. Weiss, P. Campbell and J. Hollinger
Carnegie Mellon University

A novel techniques based on modification of ink jet printing technology for controlled Gene delivery and development of a new technology for tissue engineering is proposed. The PIs seek to create a biomimetic extracellular matrix with controlled temporal-spatial patterns of NanoCaPs that contains DNAs or plasmid growth factor. The controlled patterns will be created with the ink-jet technology and the performance will be evaluated in-vitro.